REU Site: High Performance Filesystems and Data Visualization

Simulations of galactic events such as black hole and galaxy mergers
allow scientists to understand the fundamental nature of the universe.
These simulations create terabytes of data, which are extremely difficult
and time consuming to analyze using traditional mathematical tools and
techniques. To address these challenges, scientists often use data
visualization, which provides a powerful and effective approach to
understand interactions and behavior of simulations such as visualizing
the radiation of gravity waves during a supermassive black hole merger.
Visualization systems require high performance file-systems for efficient
data management. Over the last three years, a collaborative effort
between the Computer Science Department and the Center for Computational
Relativity and Gravitation at Rochester Institute of Technology resulted
in a visualization framework called Spiegel that has been used successfully
to analyze and visualize the simulation of a variety of galactic events.

This REU site provides students with the opportunity, environment and support
to conduct research in data visualization and high-performance file systems
using Spiegel as the starting point. Working in a collaborative and
interdisciplinary environment, students develop solutions to a broad set
of research problems in performing computation on massive amounts of
multi-dimensional data. Consequently, students gain knowledge in understanding,
critiquing, and presenting research literature. This project offers students
opportunities to work on state-of-the-art computing techniques that are
increasingly vital for solving research problems in modern scientific
disciplines. Undergraduate students are encouraged to pursue interdisciplinary
graduate studies in STEM disciplines. With specific recruiting efforts that
target underrepresented groups such as women, minorities, and persons with
disabilities, especially deaf and hard-of-hearing students, this REU program
also aims to increase the size and diversity of the scientific workforce.